Collective Phenomena at Low Temperatures in Novel Ternary Silicon Compounds

In this experimental research program the discovery and synthesis of novel ternary silicides are integrated with a systematic study of the low temperature properties of these materials. The emphasis is on three distinct classes of ternary silicides (silicon plus two other elements). Within each class of materials, they select compounds where two or more collective states compete for stability. An extensive variety of experimental techniques are utilized to explore and clarify the properties of these low temperature states. First they propose an in-depth study based on their recently discovered heavy fermion compound with silicon, platinum and cesium. In addition, they will examine four isostructural ternary silicides containing cesium and nickel which show behavior typical of dense Kondo systems. The experiments are designed to test the stability of the heavy fermion or Kondo lattice state against various perturbations such as atomic order, interatomic distances and tendency to magnetic order. Our second project focuses on the critical interplay between the superconducting or magnetic state and the charge-or-spin-density wave formation in silicon, cobalt and scandium. In a third set of compounds, they investigate the importance of iron to superconductivity in lutetium-ion-silicon ternaries. For all three projects, they emphasize experiments to explore the relative stability of the various competing collective states.